Chemical Separations in the Undergraduate Laboratories

In this project, students are introduced to modern separations by a series of experiments starting in general chemistry courses and continuing through all of the chemistry laboratory courses. In addition, students are exposed to computer controlled instrumentation and data acquisition. The equipment consists of an HPLC system, including a computer controlled diode array spectrometer as the detector, and two student gas chromatographs and recorder. The experiments are designed to give the students repeated exposure to separation techniques at different degrees of complexity as they progress through the chemistry program. In addition, experiments involving fast kinetics and simultaneous analysis of mixtures are possible with the equipment. Both types of experiments give the students experience with computer controlled data acquisition and processing. The institution is overmatching the NSF grant by 180%